Symposium: The Water Limitation: Issues in Plant, Community and Ecosystem Water Use to be held at the annual meeting of Ecological Society of America in Snowbird, UT, August 200

Water is a limiting resource in most natural and managed ecosystems. A better understanding of plant water use is needed for informed management of the integrity and productivity these systems. The symposium and resultant review paper will summarize the recent advances in ecological plant water relations and identify essential areas for future research. At the individual plant level, the PIs will address root-to-leaf water transport mechanisms, the role hydraulic and chemical signalling in responses to water limitation, and damage repair mechanisms. Additionally the PIs will discuss the impact of individual plant water use on the larger scales of community and ecosystem responses. The symposium will serve a broad audience of scientists in research areas ranging from plant physiology to ecosystem biology.